Mathematical Challenges in Phylogenetic Landscapes

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The goal of this project is to develop innovative mathematics to
compare, optimize and visualize phylogenetic, or evolutionary,
trees. We will analyze, via a combination of theoretical
advances and computational experimentation, the metric space of
trees. Our efforts will focus on better understanding of and
improving algorithms for calculating biologically relevant tree
metrics. We will focus on the interaction between these metrics
and the canonical, but NP-hard, optimization criteria favored by
biologists. Computationally expensive searches are currently
used to estimate the optimum and can survey only a tiny fraction
of treespace. Deeper understanding of treespace will improve
searches and sampling methods by suggesting better starting
points, identifying clustering of local optima and suggesting
locations of global optima.

Phylogenies, or evolutionary histories, play a central role in
modern biology, illustrating the interrelationships between
species, and also aiding the prediction of structural,
physiological, and biochemical properties that can lead to the
discovery of new drugs and vaccines. The reconstruction of the
underlying evolutionary history from a set of morphological
characters or biomolecular sequences is difficult since the
optimality criteria favored by biologists are hard to compute,
and the space of possible answers is huge. Due to this, clever
searching techniques and heuristics are used to estimate the
optimal tree. To improve these important, and computationally
intensive, methods, we propose to step back and rigorously
examine the underlying space of trees, along with different
optimality criteria (often called the “landscape” of trees), and
provide a detailed understanding of the space of trees to improve
phylogenetic tree reconstruction.